Planning Grant: Simulation and Visualization Enhanced Engineering Education

This planning grant to Old Dominion University has the long-term goal of to enhancing the student learning process by a curricular transformation that integrates visualization modules, simulation software, and virtual experiments and labs seamlessly across all engineering disciplines. The planning grant itself will address a number of specific questions: What is the best way to educate engineering students to provide them with hands-on experience through the virtual domain to address the changing requirements of industry? What visualization technology platforms should be used? What existing educational materials are most suitable for adoption based on the College.s curricula transformation vision? What visualization modules should be prepared in-house, and what widely used computer software should be integrated in courses? How can different education technology tools be integrated seamlessly into the curricula? What assessment instruments should be developed to gage the effectiveness of the proposed transformation? These questions will be answered in the planning grant through the establishment of the Visualization-Enhanced Engineering Education Laboratory (VEEEL), which will feature the development of a prototype visualization module as a test bed for the proof of concept. The Laboratory will also serve as a catalyst for partnerships among the faculty and area institutions, visualization and simulation software companies, and other academic institutions with proven success in this area.